E-infinity Algebras and Homotopy Theory

DMS-0203980
Michael Mandell A.

This grant proposes to use E-infinity differential
graded algebras to study the homotopy theory of spaces
and proposes to study the homotopy theory of E-infinity
differential graded algebras and E-infinity ring spectra.
The concept of E-infinity differential graded algebra
is a generalization of the concept of commutative
differential graded algebra; commutativity holds only
up to homotopy, and E-infinity differential graded algebras
admit Steenrod operations on their cohomology, which
measure to some extent the deviation from actual
commutativity. E-infinity ring spectra are a stable
homotopy theory generalization of E-infinity differential
graded algebras. Most commonly studied generalized
cohomology theories that have commutative ring structures
are represented by E-infinity ring spectra. This extra
structure yields important calculational information about
the theory and is useful for various constructions of
related theories.

Algebraic topology tries to reduce topological or geometric
classification problems into algebra. Because the algebra
is usually discrete, it is typically invariant under changes
by continuous deformations, or ``homotopies.'' Because of
this, fundamental problems in algebraic topology are often
phrased in terms of understanding the homotopy equivalence
classes of spaces or in terms of computing the number (or
more often the ``group'' or ``module'') of homotopy classes
of maps between spaces. Quite generally this kind of question
can be reformulated as an equivalent question in algebra.
The purpose of this proposal is to develop tools to study
the sort of algebra that arises in this context.